Neuroethology of Action Syntax

9319933 Berridge In this project Dr. Kent Berridge will study how a specific circuit within the brain integrates behavior into coordinated sequences of movement. This part of the brain, the striatum, is a "high-level modulator" of action in a wide range of mammals. In humans, it may control the sequencing of overt movements, words and thoughts. Dr. Berridge will study the striatum in rodents, where it appears to coordinate the sequencing of instinctive grooming movements. Previous indirect evidence suggested that the striatum allocates control among various lower-level action generating systems. Presumably, some of these action systems express programmed movements, while others may use sensory input to guide the form of movements. In the work proposed here, Dr. Berridge's group will first map the specific areas of the striatum controlling particular functions. Then they will use deactivation techniques and tests of sensorimotor thresholds to determine if the contribution of the striatum to the sequencing of movement does indeed depend upon modulation of sensory processing. These results will provide a better understanding of how the brain produces complex behavioral sequences. It may also provide insights into the nature of the processes that are disturbed in human striatal syndromes characterized by abnormal sequences of movement or thought. ***